RUI: Effects of large inedible particles on larval feeding, planktonic larval duration, and juvenile quality in marine invertebrates

Many ecologically and economically important marine invertebrates (e.g., oysters, crabs, and sea urchins) have life cycles that include feeding larval stages that live drifting in the water as part of the plankton. These larvae spend days or weeks feeding on tiny algal particles to fuel their development until they can metamorphose into juveniles. In nature, however, the plankton includes not only edible particles, but also many particles that are too large to be eaten but which may interfere with feeding on edible particles. These include, for example, large algal particles, eggs and embryos of other invertebrates, re-suspended sediment, and anthropogenic nano- and micro-plastics. When larvae encounter large inedible particles, they may respond by altering their swimming behavior to avoid them, or by capturing and then rejecting them. Such interactions reduce the rate at which larvae can capture edible particles, which forces them to either spend more time feeding before metamorphosis (increasing their overall risk of dying due to planktonic predators), or to metamorphose with less energy, producing juveniles in relatively poor condition. This project examines how large inedible particles affect feeding, time to metamorphosis, and juvenile condition in the larvae of diverse marine invertebrates. The project has the potential to dramatically change our understanding of how larvae feed and survive in natural communities, and thus our understanding of the population dynamics of these important organisms. The project will support research training opportunities for undergraduate and graduate students at California State University Long Beach, a primarily undergraduate institution, as well as summer research internships for students at two local community colleges. Project data will be integrated into laboratory modules in undergraduate courses. Finally, data on the reproductive biology of diverse California marine invertebrates will be added to a public website that is widely used by members of the public, students, and biologists interested in the development, life histories, ecology, and evolution of these common animals.

The factors that control planktonic duration and juvenile condition in marine invertebrates with feeding larvae have long been recognized as critical to understanding their ecology and evolution. Larval feeding environment is clearly one of those factors, but previous work has focused almost exclusively on one feature of that environment, the abundance of food. This project will evaluate the importance of another potentially critical dimension of the larval feeding environment — the presence of large inedible particles, which are frequently abundant in natural plankonic communities. It takes a comparative approach to address two key questions about the effects of large inedible particles on larvae (including those of echinoderms, annelids, and molluscs) that feed using several different particle capture mechanisms. First, do large inedible particles present in natural plankton reduce larval feeding rates? And second, does the presence of large inedible particles extend larval planktonic duration or result in the production of lower quality juveniles? Feeding rates of larvae will be measured in short-term experiments in which larvae are exposed to both food and to natural or artificial large inedible particles over a range of concentrations. Effects of large inedible particles on planktonic duration and juvenile quality will be measured by culturing larvae through their entire life cycles in the presence of large inedible particles at various concentrations. Because feeding performance is an important determinant of planktonic duration, larval survival, and juvenile condition, the project will add greatly to our understanding of how conditions in the plankton affect the population dynamics of the many marine invertebrates with feeding larvae.